Ramsey Theory and Computability: Rome

This conference award provides partial travel support for US participants to attend the "Workshop on Ramsey Theory and Computability Theory", to be held in Rome, Italy, in July 9-13, 2018. The workshop seeks to capitalize on a string of recent results in reverse mathematics, more specifically, recent advances at the intersection of computability theory and combinatorics. A mixture of US based speakers and students will be supported.

The workshop will focus on the computability-theoretic and proof-theoretic strength of combinatorial principles such as Ramsey's Theorem for pairs and Hindman's Theorem. More information on the workshop can be found at https://www3.nd.edu/~cholak/Colosseum.html